BRIGE: One-Dimensional PdFe Core- Pt Shell Nanowires for Oxygen Reduction Reaction

1032547
Li

The research objective of the NSF-BRIGE proposal is to investigate a novel one-dimensional axial PdFe core - Pt shell nanowires, which have advantageous crystallographic facets and tuned electronic properties, and can be used as efficient cathode catalysts for electrochemical energy conversion and storage devices. The overall goals are to acquire fundamental understanding of controlled wet-chemical synthesis of metallic nanocatalysts at the atomic and nano- scale, and gain knowledge of structure-catalytic functionality relationship of multi-metallic electrocatalytic systems. The career goal of the PI is to establish a world-class Nano Electrochemical Energy Program at Michigan Technological University (Michigan Tech) incorporating catalysis and clean energy with engineering, and integrating teaching / training / learning with research.
Intellectual merits: Sustainably meeting humanity's energy needs has been identified as a primary research challenge for the next fifty years. Without Carnot limitation, electrochemical energy devices directly convert chemical energy of fuels (i.e. H2, ethanol, Zinc, etc) into electricity with high theoretical efficiency. However, the sluggish kinetics of oxygen reduction reaction (ORR) at cathode has been a long-standing scientific issue, which significantly reduces the electrochemical energy conversion efficiency. The PI's group has started a rigorous research on "accurate preparation of metallic nanostructures", and they have developed a wet-chemical approach to synthesis of 1-D PtFe/PdFe alloy nanowires with large electrochemical surface area and good durability. The working hypothesis is that PdFe core- Pt shell nanowires can 1) greatly improve ORR activity due to more active crystallographic facet Pt {111} on surface and optimized d-band center of surface Pt atoms; 2) significantly enhance durability due to less thermal-driven coalescence. To test this hypothesis, the PI proposes to conduct transformative research in the area of nanostructured catalysts for electrochemical energy. The specific research tasks of this proposal include: 1) precise synthesis and full characterization of carbon supported 1-D PdFe core- Pt shell nanowires (PdFe@Pt-NW/C) catalysts, 2) investigate electrochemical performance of PdFe@Pt-NW/C in three-compartment-cell, and 3) ORR and durability study in real electrochemical energy device. This NSF-BRIGE proposal fits well into the PI's long-term research interest of studying controlled synthesis of novel nanoengineered materials and understanding their electrocatalytic reaction mechanisms.
Broader Impacts: The project activities will have a broad impact on research, education and outreach efforts in the Great Lakes Region through Michigan Tech's established infrastructure. The knowledge and technology generated from the research activities will advance accurate synthesis of novel catalysts at the atomic and nano- scale, and deepen understanding of structure-catalytic functionality relationship (specifically, "Pt skin-PdFe substrate interaction" with ORR activity) of multimetallic catalysts. This research effort will initiate close research collaborations with industry. It will propel development of advanced materials, deliver new discoveries, enhance Michigan Tech's infrastructure and technology-transfer, and strengthen Michigan Tech's on-going "sustainable energy" activities. This research will also help upgrade fabrication techniques of clean electrochemical energy devices. In particular, it will support the nation’s efforts to diversify its energy supply and reduce dependence on foreign oil. The proposed educational plan is to design and produce a Clean Energy Workbook. The Workbook will serve as a unique material in clean energy and catalysis education for undergraduate and secondary students. One primary audience will include diverse groups of 6th-12th grade students who participate in Michigan Tech's existing summer youth program (SYP) and diverse community college students in the existing Michigan College & University Program (MICUP), in which the majority of students are primarily drawn from traditionally underrepresented groups in science and engineering. The proposed research and education plan will help to bring more engineers from groups traditionally underrepresented (female, African American, Hispanic and Native American, disabled) into engineering areas by working on cutting-edge Nanocatalyst Technology. Exposing young students to the catalysis, clean energy, and nanotechnology research environment will inspire their curiosity and interest in science, engineering, and technology, and benefit society by sustainably supplying a number of diverse, next generation researchers that serve as role models for the scientific workforce of the future.